Order and Chaos in Classical and Quantum Mechanics

Semiclassical methods are applied to find and interpret large-scale structures in the absorption spectrum of atoms in electric and magnetic fields. These structures are associated with periodic or closed orbits. The research requires analyzing bifurcations in classical, semiclassical and quantum mechanics.